REU: Undergraduate Research on the National Survey of Families and Households

During summer 1988, eight undergraduate students will receive training in analysis and interpretation of data from a major new social science survey, the National Survey of Families and Households (NSFH). Each student will be supervised by one or two of the NSFH faculty research team. A graduate assistant will provide training on the VAX computer system, and on personal computers, for data analysis and report writing. Students will learn to extract working files from the large survey file, to perform basic statistical analyses, to document data, and to present findings in tabular, graphical and written form. They will interact daily with faculty supervisors and meet weekly as a group to discuss data and computing problems, and to report on research findings. At the end of the summer, students will present short papers on their research projects in colloquia attended by graduate students and faculty of the Center for Demography and Ecology. These papers will be candidates for inclusion in the CDE Working Paper series. Applicants for the REU program will be recruited from state and private colleges in the upper Midwest, particularly those with relatively high minority enrollments. UW-Madison's current recruiting procedures for two ongoing undergraduate research programs aimed at minority students will be used to obtain applicants for the NSFH program.